Regional Cooperative Activities to Support Global Change Research in Inter-American Institute (IAI) Countries

9320454 Khader This award will support education, training and capacity building for global change research within countries participating in the Inter-American Institute for Global Change Research (IAI), an initiative launched by the United States. These funds represent the U.S. contribution in support of Global Environment Facility (GEF) Project RLA/92/G35, Regional Cooperative Activities to Support Global Change Research in IAI Countries, as a signatory to the agreement establishing the Inter-American Institute.